Hydrogen Bonding, Ionic Solvation, and Anomeric Effects

This project employs nuclear magnetic resonance as a means of studying the nature of the hydrogen bond as well as other ion solvation and anomeric effects. A major objective of the proposed research is to determine experimentally the symmetry of a variety of hydrogen bonds. Concerning ion solvation, a newly developed NMR titration method is a powerful one for obtaining a quantitative measure of the steric demands of ionic species. Finally, clarification is sought as to the extent of anomeric stabilization when the electronegative groups are ionic.

With this Award, the Organic and Macromolecular Chemistry Program continues its support of the research of Professor Charles L. Perrin of the University of California San Diego. Professor Perrin employs spectroscopic techniques similar to magnetic resonance imaging but on a molecular scale, in such a way that dynamic chemical processes and structures can be elucidated. The major aim of the research project is the characterization of the hydrogen bond, which is the type of bond by which the molecules of life adopt and maintain their three-dimensional shapes.